Collaborative research: Ecosystem Consequences of Dynamic Geomorphology: An Experimental Approach

Ecosystem Consequences Of Dynamic Geomorphology: An Experimental Approach

This study uses Fossil Creek, Arizona as a model system for studying how restoration of flow and removal of non-native fish affects the physical and biological structure of streams. For the last century the majority of water was diverted from Fossil Creek for hydropower production. Water was returned in 2005 as part of a river restoration program that included removing non-native fish. Fossil Creek was targeted for restoration because it retains native fish and has unique travertine dams creating steep waterfalls and deep pools. This study will test how increased flow affects travertine formation, river productivity and biodiversity. The integration of geomorphology and ecology will advance our understanding of the interplay of physical and biological process in structuring stream ecosystems.
Fossil Creek will serve as a national case study in river restoration by testing whether restoration goals are met. Fossil Creek is a living laboratory where hundreds of high school, undergraduate and graduate students are learning to conduct basic and applied research. This project will train a new generation of students skilled at communicating their science to managers and the public. Public outreach includes a PBS video, an article in Scientific American and outreach materials for visitors to Fossil Creek. Together these materials will educate the public about the importance of science in river restoration.